Organization of NSF Conference on Optical Nonlinearities, Femtosecond Phenomena and Signal Processing

A workshop whose purpose is to provide advisory information on areas deemed to be important to the lightwave technology and related quantum, waves and electron beam areas will be held. It is particularly important as a basis for planning of future research directions.